Network Protocols for Broadcast Communication

The computer of tomorrow will be a fault tolerant network in which communication is a fully integrated function equal in significance to storage and processing. In such a network, challenging problems arise from the need to maintain consistency of the data and of processing. These problems are currently solved using agreement protocols that require many message frames to be exchanged with adverse effects on network performance. The approach of this research to maintaining consistency is based on two novel protocols. The Trans protocol provides efficient reliable broadcast or multicast communication. The Total protocol promptly places a total order on message frames and achieves distributed agreement in the presence of communication faults and of fail-stop, timing, omission, and Byzantine processor faults. The Trans and Total protocols are intended to be used in local area networks such as Ethernet, token ring or FDDI ring. By exploiting the inherent broadcast characteristics of the physical communication medium, substantial improvements in performance can be achieved. The design of fault-tolerant networks is greatly simplified when consistency between distributed components of the network is maintained by the communication function.